Real-Time Learning Controllers for Enhanced Autonomy and Reliability of Space Robots

This research explores methods for increasing the autonomy and reliability of spacecraft and space robotic systems by using a new class of adaptive, dynamically structured, neural networks. Similar to strategies observed in human adaptive motor control, the networks are used to develop flexible, compact models of the robot, its payload, and the environment in which they interact; these adaptive models are then used to modify the low level motion control program so as to ensure efficient, high performance operation. There are three main objectives to the proposed research. The first is to extend neural control designs for fixed-base robots to dynamically more complex space robotic systems. The second is to systematically investigate methods for dynamically varying the amount of computation performed by the network, attempting to simultaneously achieve high performance with minimum complexity. By combining techniques from wavelet analysis and nonparametric estimation with nonlinear dynamical stability theory, it is hoped to develop a general methodology for designing network structure adaptation mechanisms which achieve a prespecified complexity/performance tradeoff. The final goal is to implement the resulting controllers on prototype space robots operating in neutral buoyancy simulation, and to evaluate their performance on baseline mission operations.